Molecular Systematics of Green Algae and Primitive Land Plants

The origin and diversification of land plants have been long standing problems in botany, which the fossil record alone has been unable to resolve. In recent years, it is molecular data from genome analyses that have demonstrated great promise in identifying the algal groups closest to the presumed ancestors of bryophytes and vascular plants. Dr. Manhart of Texas A&M University will join the small network of researchers analyzing chloroplast DNA gene order and sequences in order to determine the phylogenetic relationships of green algae and primitive land plants. The spatial order of genes on the circular DNA molecule of plant chloroplasts and the nucleotide sequences of functionally important chloroplast genes are highly conserved features of plant genome organization. By analyzing similarities and differences in these two major features, Dr. Manhart will help determine the groups of Charophycean algae that most closely match primitive land plants in basic genomic structure. Comparable studies of select groups of mosses and ferns will provide an overall framework for the evolutionary connections among algae and early land plants. The molecular datasets will be evaluated using computer methods to generate phylogenetic trees, and the results compared and integrated with morphological and fossil evidence.